Acquisition of Instrumentation for Imaging and Micromanipulation of Soft Materials

9724486 Klein The University of Pennsylvania will acquire a confocal microscope workstation for three-dimensional imaging and micromanipulation of soft materials. The instrument will support research in the areas of colloid engineering, including colloidal crystals and particle epitaxy, vesicles and membranes, emulsions, molecular elasticity, and flow in porous media. The instrument will be part of a Center for Advanced Imaging and Micromanipulation housed in the University's Laboratory for Research on the Structure of Matter (LRSM). %%% Acquisition of this instrumentation will impact the research and research training of over 40 students and postdoctoral fellows associated with the soft materials group at the LRSM. The instrument will also be utilized by the 25 undergraduates, half of them from other colleges and universities, participating in the LRSM summer Research Experience for Undergraduates program. ***